New Problems from Research for Undergraduate Physics

9415889 Holbrow This project will solicit, prepare, and publish a new category of physics problems for intermediate-level undergraduate physics courses. These problems are to be derived from current or recent work of physicists and engineers actively engaged in research. The purpose of these problems is to exhibit new, interesting, or particularly insightful applications of undergraduate physics to the phenomena or results of contemporary physics research. The problems are being published in the American Journal of Physics in a special section called "New Problems", and will be made available via Internet. ***